Regulation of Serotonin Release in Mammalian Brain

The research by Dr. Sidney Auerbach examines the role of serotonin in mammalian physiology. There are two conflicting views of the functional organization of serotonin-containing nerve cells in the brain. Some evidence indicates that separate groups of these cells are involved in specific processes such as control of pain. In opposition is recent evidence that the discharge rate of all serotonin cells is very regular and is not increased by physiological or behavioral challenges. To reexamine the controversy raised by the electrophysiology data, Dr. Auerbach will use intracerebral dialysis to measure release in four anatomically and functionally distinct brain areas of freely behaving rats. If release is not affected by challenges such as environmental cooling or physical restraint, it will corroborate the electrophysiology and suggest that serotonin is not actively involved in responses to stress. If serotonin release is increased, it will suggest that release is regulated at nerve endings independently of cell body discharge. Dr. Auerbach will locally administer antagonists to vasopressin and opioids to test the possibility that brain substances released during stress act at serotonin nerve terminals to regulate serotonin release. The research is expected to yield new insights into contradictory evidence concerning how serotonin cells function within the brain to regulate physiology.